Mathematical Sciences: Approximation of Probabilities and Expectations for Sums, Multilinear Forms and Ladder Variables

The principal investigator is continuing his work in theoretical probability. He will be collaborating with a number of different scientists on problems relating to limit theorems of independent random variables. These problems arose originally from questions in mathematical statistics. In particular, he will work on problems dealing with refinements of the Berry-Essen theorem, strong limit theorems, and multilinear forms.